Hands-on Experiences with NMR in the Undergraduate Chemistry Curriculum

Chemistry (12) NMR methodologies are being incorporated into selected laboratories across the chemistry curriculum with a new 300 MHz NMR with an autosampler. NMR experiments previously published in the Journal of Chemical Education are being used. The experiments are being used to enhance a larger picture of the curriculum, since experiments build on students' previous knowledge, beginning with an introduction in the honors laboratories for general chemistry and general studies. Gradually the students are introduced to more complex uses of the instrumentation and data interpretation as students progress to more advanced courses leading ultimately to undergraduate research experiences.